Constitutional and Legal Change in Eastern Europe

Since 1989, seven countries in Eastern Europe have begun the transition from one-party rule to constitutional democracy: Albania, Bulgaria, Czechoslovakia, Hungary, Poland, Romania, and Yugoslavia. Historically unprecedented, this wave of constitution- writing presents an exceptional opportunity for the study of constututionalism, comparatively and transnationally. Although the American and French experiences at the end of the eighteenth century took place at the same time, the sharp dissimilarities between the two countries limit the fruitfulness of comparative study. But contemporary developments in Eastern Europe are ideal for comparative and transnational study for a number of reasons. All of the countries have emerged from a comparable period of Communist Party rule. Also, all have pre-constitutional traditions. And, along with the liberalization and democratization of political institutions, all are undertaking transitions from central planning to a market economy. This project will enable the construction of a data bank for unprecedented, comparative and transnational study of the sociolegal dynamics of constitutionlism. Specifically, comparable data from each of the seven Eastern European countries will be collected, translated, coded, and archived according to the following analytic categories: legislative-government relations; electoral laws; the formation of political parties; the formation and implementation of basic rights; constitutional courts and judicial review; institutionalization of the liberal concept of private property; federalism and local government; ethnic, religious and linguistic minorities; degree of autonomy of state agencies and corporations; restitution and retribution; and the constitution-making process. These data will be available on Microsoft Word and Macintosh. Scholars will be informed about additions to the data bank through a quarterly newsletter.